A Workshop on Building Acoustics

A three-day workshop is planned for Fall 1985 at the University of California at Los Angeles, to determine and clarify the basic research needs in the field of building acoustics. Research in building acoustics to date will be surveyed and then projected to new areas of concern, including verification of theoretical analysis and simulation by acoustics modeling, comparison of building performance with reference to acoustics regulations, examination of existing design systems and optimization, and application to building design and construction. Emphasis will be placed on the examination of building acoustics as an integrated part of environmental conditions and control systems in buildings. The relationship of building acoustics to thermal requirements, lighting, and other environmental factors in buildings will be considered.